Differential and Integral Equations in Neurobiology

The investigator studies the dynamics of certain classes of
integro-differential equations that arise in models of cortex. He
examines how recurrent activity terminates due to any of several
effects such as synaptic depression, depolarization block, and
after-hyperpolarization. He also considers how recurrent
connections lead to bistability and under what conditions this is
sufficient to produce localized spatial states, wave fronts, and
pulses. He uses methods of averaging and bifurcation theory to
derive and analyse simplified dynamics from these models. The
mathematical results explain a variety of experimental findings
in both normal and pharmacologically manipulated neural tissue.
These methods are applied to the Limax procerebral lobe, the
turtle olfactory bulb, and various cortical slice preparations.
Neurons, the main cells in the brain, are responsible for
processing inputs from the outside world and converting this to
motor actions. They communicate by producing spikes that are
propagated to different regions of the brain by chemicals called
transmitters. The nvestigator is interested in how this
electrical and chemical information moves from one part of the
brain to others. He uses simulations and mathematics to derive
equations and general principles about how this is done.
Experiments have shown that during some cognitive tasks, certain
groups of neurons fire synchronously. He is interested in the
conditions that are necessary to attain precise timing between
different groups of neurons. In order to study these, he has
developed mathematical software for the study of complex
biological and physical systems. As part of this project, he
continues to develop this software and to make it widely
available. The project also provides interdisciplinary training
opportunities for students and postdocs.